GOALI: Internal Shocks and Acoustic Emissions in Gas Particle Flows

The objective is to improve understanding and develop numerical simulation of shock structure in gas-particle supersonic jet flows, and the interactions with boundary layer of the flow and acoustic field. The particle presence changes the flow structure of a shock wave, the onset of flow separation and acoustic emissions as compared to single fluid flow. A combined experimental and computational investigation will be undertaken, including design improvement for supersonic jet nozzles. Pressure fluctuations will be measured in a particle-laden jet in a variety of configurations. The simulations will be based on Lagrangian description of the particle motion and large eddy simulation of the mixture. This is a GOALI project in collaboration between the University of Cincinnati Propulsion Laboratory and Cold Jet Incorporated. The proposed research has relevance to various propulsion systems, combustion, jet cleaning and cutting, as well as to the general development of understanding of two-phase supersonic compressible flows.